FASEB Summer Research Conference on Amyloid and Protein Assembly Processes" to be held at Copper Mountain, Colorado,July 13-18, 1997

9722070 Fink The 1997 FASEB Summer Research Conference on Amyloid and Protein Assembly Processes will be held at Copper Mountain, Colorado from July 13-18, 1997. This conference should provide an increased awareness of protein deposition as a process that is not only biologically relevant but also exhibits significant molecular structure and specificity. The focus is on protein aggregation and other manifestations of protein-protein interactions, e.g., domain swapping. A main thrust of the conference is on folding and aggregation of polypeptide backbones using state of the art methodology. The conference will be attended by a maximum of 160 participants. The topics are mainly fundamental in nature. This meeting will bring together biologists familiar with the biology of protein aggregation and assembly processes in order to understand the molecular biology and biophysical basis of these phenomena. The format of the FASEB Summer Research Conferences is ideal for stimulating cross-fertilization in developing areas of research.